RIA: Model Independent Rate Controller for Nonlinear Systems

9409064 Kalanovic In this research project, variable structure nonlinear rate controllers are developed for dynamic systems commonly encountered in the context of industrial environment. These controllers significantly improve system performance by increasing the speed of response, lowering overshoot, and enabling high disturbance rejection. The configuration of the controller includes an error feedback structure identifier coupled with a variable structure artificial neural network. The modified controller, so designed, provides a capability of enforcing robust and high quality tracking. Experimental results validate mathematical analysis, modeling and simulation of the controlled nonlinear systems. ***